The Globalization of Food Retailing and Development in Southeast Asia

Dartmouth College The proposed research will focus upon the theme of the globalization of food and agriculture and the interplay of political-economic forces and cultural processes linked to mass market, food retailing in Singapore. The project has four basic objectives. These are to detail the political-economic forces and key actors in the rise of super stores and supermarkets; to understand changes in food retailing since 1970; to carry out brief ethnographic pilot studies to better understand food retailing on consumer culture; and to use Jakarta, Indonesia and Kuala Lumpur, Malaysia to develop connections to the food retailing sector in order to draw comparisons with Singapore. Methodologies will use store-based ethnographies, focus groups and numerous interviews. The product will allow the investigator to prepare a proposal for broader investigation of food retailing as a reflection of globalization in the Southeast Asian region.